Student Research Projects in the Calculus Curriculum

Mathematicians from New Mexico State University will continue to develop and implement a plan using student research projects in a broad range of calculus courses. During the first two years NMSU will use three individual two-week projects instead of hour exams in thirty-five calculus sections. New Mexico Institute of Mining and Technology, University of Texas at El Paso and Western New Mexico University will each teach three sections using the student research projects mode. Almost one-third of the students at NMSU and a half of the students at UTEP are minorities. A collection of four hundred problems, many annotated with information on their success in the classroom will be compiled. These projects require that students think broadly and deeply, identifying background material and synthesizing an approach. Scientists, engineers and economists will help design projects which demonstrate the mathematical underpinnings of solutions to applied problems. There will be faculty workshops, training of teaching graduate assistants, Advisory Committee meetings and an extensive evaluation. The latter includes evaluating long term intellectual growth of students. NMSU cost sharing for three years is $153,466, which is approximately 40% of the cost of the project.